Scientific Computing Research Environments for the Mathematical Sciences (SCREMS)

NSF Proposal DMS-0209695
PIs: Ipsen, Campbell, Kelley, and Meyer

ABSTRACT

The proposed research concerns the numerical solution
of sparse optimal control problems. The research issues
originate from the Boeing Company's software project
SOCS (Sparse Optimal Control Software). The
constraints in the control problems are represented by
systems of differential algebraic equations (DAEs), a
class of differential equations whose solution poses
serious challenges. The PIs propose to advance the
state-of-the-art in high-index DAE technology to solve
realistic, large-scale applications; to increase
software scalability through the use of interior point
methods for non-linear solvers and Krylov-space methods
for linear solvers; and to develop prototyping software
to test accuracy and performance of new algorithms.

Research will be conducted on improving software for
difficult, complex problems in aerospace and mechanical
engineering applications, such as design of flight
control systems, robot arms, and information retrieval
systems. The use of computation to explore new science
and engineering concepts is central to the project.
This multi-disciplinary project is driven by
collaboration with the Boeing company on its industrial
software project SOCS which solves many large-scale
optimal control problems that occur in chemical
reactions, and a large variety of aerospace problems.